Theory of Ferroelectric Random Copolymers

The goal of this research is to develop a statistical-mechanical theory of phase transitions in ferroelectric random copolymers, and to apply this theory to the copolymer of vinylidene fluoride with trifluoroethylene. This material is of particular interest because it exhibits a reversible transition between ferroelectric and paraelectric phases. The methods to be employed involve the combination of the transfer-integral approach that has been successfully used to study ferroelectric homopolymers and the Schmidt functional-equation method. This latter technique was originally developed to treat the electronic density of states in metallic alloys, but now shows promise as a powerful tool in the study of polymers. The significance of the proposed research lies in the fact that comparatively little detailed work has previously been performed on the theory of crystalline polymers exhibiting both conformational and configurational disorder. A successful outcome of this research project would open the door to the theoretical study of a wide range of copolymeric materials.